Planning Grant: Posts-Relational Database Technology

The long range objective of the Computer Science Department at Long Island University's Brooklyn Campus, by means of the five-year infrastructure grant (II-MI), is to build research, educational, and experimental laboratory capabilities in the area of post-conventional relational DBMS technology VIZ, knowledge base management systems (KBMS) and object-oriented data base management systems (00-DBMS). Research activities in these areas will focus on the development of models, techniques and tools for extending (or transforming) conventional relational database systems. Implementation of these extensions, in the form of interfaces or modifications to the conventional relational data base system, will be carried out in an experimental computer laboratory located within the department. These research and implementation activities will coupled with and feedback to the computer science curriculum. The curriculum will be enhanced to include advanced material and new courses in disciplines related to these research activities (eg, advanced artificial intelligence, advanced data base systems, expert and knowledge base systems, expert and knowledge base systems, object-oriented programming and object oriented-system design). In addition, a Laboratory Research Projects Course will be introduced whereby some of the extensions and modifications, resulting from research activities, will be implemented. Research and implementation activities will be conducted by Department faculty with the close cooperation and assistance of Ph.D granting Computer Science Departments in the metropolitan area, viz, Polytechnic University, New York University and/or Columbia University.